Collaborative Research: Soil Organic Matter in the Tropics: Determinants and Consequences

WPC 2 B T V #| x 10 pitch wCourier 10 pitch w x @ ; z N x x x , x @ ; S 2 4 W < , #| x HP Laserjet (25-in-one, Network) HPLASEII.PRS X t 4 P RN h 0 IS Courier 10 pitch wLine Printer 16.66 pitch 2 J D f z N x x x , x @ ; m 2 H H H , H | @ ; 2 9349451 Palm Colorado State University Natural Resource Ecology Laboratory continues to investigate the determinants and consequences of soil organic matter (SOM) in the humid tropics. Main activities consist of 1) determining the relative effects of soil texture and clay mineralogy on total SOM content, 2) estimating the size of different SOM functional pools, 3) relating their N and P supplying capacity to texture and mineralogy, 4) determing the relative importance of physical protection, chemical recalcitrance and nutrient availability on the SOM pools, and 5) quantifying the effects of different land use practices on SOM pools. The CENTURY model will be modified for use in tropical conditions. The results will provide a deeper understanding of organic matter dynamics in soils with variable charge which will serve as a base for improved agricultural sustainability in the humid tropics and more realistic estimates of CO 2 emissions to the atmosphere upon deforestation. ***